Syntheses of Unique Tris\(pyrazolyl)methane Ligands for the Preparation of New Mono- and Multi-metallic Compounds

Daniel L. Reger, Department of Chemistry and Biochemistry, University of South Carolina at Columbia, is supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program for his work developing new metal complexes of tris(pyrazoyl)methane (tpm) ligands. These ligands are closely related to tris(pyrazoyl)borates, but have been much more difficult to prepare. Reger has developed new synthetic pathways to tpm ligands such as HC(pz)3, HC(3,5-Me2pz)3, HC(3-Phpz)3, HC(3-tBupz)3 and HC(3-iPrpz)3. Linked bi- and poly-functional pyrazoyl methane ligands, such as all three isomers of C6H4[CH2OCH2C(pz)3]2, will form building blocks for the preparation of coordination polymers that have unusual 2-D or 3-D supramolecular structures.

Metal complexes of tpm ligands may show unique reactivity or catalytic activity. The coordination polymers, especially those containing two different metals, will have interesting physical or electronic properties. In addition, several graduate students and faculty members, including coworkers from a HBCU undergraduate institution, will have the opportunity to participate in the research project.